Preparing Teachers to Teach Mathematics: A Problem-Solving Focus

This 3-year teacher preparation project will develop and evaluate materials and strategies for preparing elementary school teachers in mathematics. As a joint effort of the Mathematics and Mathematics Education departments of Indiana University and the Dyer Elementary School of Monroe County, this project will interface with an overall revision of the university's elementary teacher education program. The new program will require that each student must complete an 18-24 semester hour concentration (one choice is mathematics) and a three- semester sequence of school -based field experiences prior to student teaching. Specifically, this project will address the revision of two mathematics courses required of all preservice elementary teachers in order to upgrade and modernize the content and to integrate problem- solving emphases with computers and calculators. In addition two new courses for the mathematics specialists will be developed featuring instruction and internships in problem-solving approaches to the teaching of elementary school mathematics. A Vital feature of this model will be the development of a local elementary school faculty to offer an exemplary mathematics program. The in-service teachers of the Dyer Elementary School will cooperate in all phases of the field experiences of the preservice teachers. The will receive intensive but sustained assistance to improve their own teaching of mathematics to reflect the problem-solving goals and emphases of the teacher education program. They will develop their capacities to serve as significant teaching models and as clinical adjuncts to the campus-based components of the teacher preparation program. They will collaborate with project staff in the planning and evaluating of all phases of the school-based activities. Project evaluation will include systematic formative and summative assessments of project strategies, accomplishments, and consequences. It is expected that university course materials, including print, video and computer/calculator components, will result. Further, plans for disseminating the model and materials throughout the Indiana University system, as well as nationally, have been made.